Testing of I-40 Bridges Spanning the Rio Grande

This project is to conduct nondestructive testing of I-40 bridges spanning the Rio Grande rift in Albuquerque. The bridge, a 1,275 foot long structure consisting of three 3-span continuous units-each a two-girder steel welded with bolted splices and floor system, is scheduled razing in mid 1993. The bridge will be instrumented and tested by conventional as well as new, advanced methods, such as resonance ultrasound spectrascopy (RUS) and electronic speckle pattern interferometry (ESPI) to determine the impact of defects on the load distribution, load capacity, and the potential for collapse under dynamic earthquake loads. The project presents a unique opportunity to test the effectiveness of various nondestructive testing methods (NDT), to obtain valuable field data for evaluation of field cracking and other structural damage first hand. Through NSF support, and based on the national interest in civil infrastructural system problem as a whole, the New Mexico State Highway and Transportation Department also commits substantial amount of support to this project. This is a project supported under the Small Grants Exploratory Research (SGER) Program.